U.S.-Germany Cooperative Research: Supramolecular Coordination Chemistry

This research combines the PI's expertise in metal ion coordination chemistry with that of his collaborator in organic supramolecular structures based on coordination chemistry. The foreign PI's group has been a leader in Europe in this field. Raymond is at the forefront of supramolecular chemistry, and is known worldwide for his work in siderophore chemistry. This particular area of self-assembly and rational design based on symmetry considerations will undoubtedly provide new chemistry for the future. The collaboration involves several graduate and postdoctoral students, all of whom will benefit from the collaboration.